Towards Software-Defined Soft Robotic Antennas for Spectrum Era 4

Radio spectrum is fundamental resource for wireless communication. As a result, the ability to allow radios to flexibly use different parts of the wireless spectrum is key to managing this scarce resource efficiently. Indeed, the original vision of a software defined radio is one in which a radio’s center frequency is tunable, as is the precise signal waveform that is to be transmitted. However, a pivotal element is typically not as flexible to program – the antenna. Indeed, most programmable radios today either require mechanical or electronic switching between antennas, or wide-band antennas whose performance is poor especially if form factor is constrained. This project develops Softenna, a first-of-its kind soft-robotic highly re-configurable antenna platform that dynamically adapts its RF properties, including center frequency, beam pattern, directionality and polarization. Softenna achieves this through a combination of mechanical and electronic re-configuration. Softenna combines innovation in wireless systems and soft robotics, enabling curriculum development at the university and K-12 levels that brings together both fields.

Softenna is composed of multiple elements fabricated using stretchable and flexible materials and liquid metal. Softenna is designed to offer rich shape changes and a learning-based pipeline that studies which shape pattern is best suited to a given operating frequency, device location and environment. The system will be fully implemented on soft robotic antennas integrated with software defined radios operating in the sub-6 GHz frequency bands and evaluated these spectral bands. The project’s key contributions include: (1) The design of the Softenna platforms that enable rich variations in operating frequency; (2) Accompanying algorithms support learning and programming the behavior of these platforms to best suit any given environment. (3) A comprehensive implementation and study of the system through experimentation in varied testbeds, both indoors and outdoors. As part of educational and outreach efforts, the investigators will develop a workshop module where high-school students program wireless radios via Carnegie Mellon University’s Spark Saturday program and integrate findings in university-level courses in wireless systems and robotics.